Precision Manufacturing for High Density Servo Motors

The Electromechanical Systems Laboratory (EMSyL) is an existing consortium composed of the University of Alabama, Auburn University, the University of Tulsa, Shelton State Community College (with HBCU status), and the Alabama School of Mathematics and Science. The EMSyL industrial partners are: Bartronics (minority owned), Honeywell, T.B. Kim Technologies International, Lockheed Martin, Moog, and Preco Industries. The federal partners in EMSyL are Oak Ridge National Laboratories and NASA - Glenn Research Center. The consortium is presently in the first year of a two-year NSF/EPSCoR standard grant. EMSyL represents a vast collection of resources, both human and capital, that provides a unique opportunity to tackle the complex issues associated with the proliferation of electromechanical systems in industry.